Towards an Institute for Cooperative Earth Studies: Exploratory Workshops

The investigators seek to advance the creation of a Cooperative Institute for Deep Earth Research (CIDER). This award will provide funds to hold a series of 2 workshops over a period of one to two years whose goal will be to define the scope and activities of a possible future CIDER. The workshops will be interdisciplinary in nature and will address the question of global Earth structure, evolution, and dynamics. Participation will be open to the community. The direct product of each workshop will be a report listing the key questions identified during the workshop, whose resolution requires an interdisciplinary approach, as well as recommendations for the activities and structure of the future CIDER. These documents will then be used as a basis for the preparation of a detailed proposal for the establishment of CIDER.